Mechanisms of Horizontal Chromosome Transfer (HCT) among Pyricularia Fungi

The production of staple crops that feed humans and livestock are severely affected by blast disease caused by a fungal pathogen. This fungal pathogen carries essential chromosomes and, in many isolates, extra chromosomes that are typically smaller in size. These small chromosomes harbor important pathogenicity genes and can transfer between strains, contributing to DNA variation among strains, and this transfer can facilitate pathogen adaptation to changing environments and hosts. However, the mechanisms underlying the transfer of these small chromosomes between strains remain mysterious. This project aims to elucidate how these extra chromosomes transfer between strains using research approaches in molecular biology, fluorescence microscopy, genetics, and genomics. The findings will advance our understanding of the specific process for how fungi exchange DNA. This is important for combating the fungal pathogen that poses a serious threat to domestic agriculture and global food security. Furthermore, knowledge of chromosome transfer in nature may enable the development of novel biotechnological applications. This project will contribute to training the STEM workforce by providing graduate and undergraduate students with research opportunities in plant pathology, molecular biology, cytology, genetics, and genomics.This project addresses NSF priorities in Biotechnology.

In fungi, particularly for clonal species, horizontal chromosome transfer (HCT) is an important process for introducing genome variation, thereby increasing genetic diversity and facilitating fungal adaptation. Supernumerary chromosomes, which are not essential for species survival, are demonstrated to transfer in multiple fungal species, including Pyricularia oryzae (Syn. Magnaporthe oryzae), the causal agent of blast disease on monocots. However, how supernumerary chromosomes transfer from one haploid nucleus to another and the underlying genetic basis remain unknown. The goal of the proposed project is to elucidate the subcellular process and the underlying genetic basis of HCT in fungi using Pyricularia as a model. This will be achieved through the following four aims: 1) Understand compatibility, frequency, and species boundary of mini-chromosome HCT among strains of the genus Pyricularia; 2) elucidate the underlying subcellular process of HCT; 3) identify key transcriptional pathways regulating HCT; 4) determine the genomic elements enabling supernumerary chromosome transfer. The outcomes from the project will deepen our understanding of eukaryotic chromosome transfer, and how this contributes to genome evolution of fungal Pyricularia species. The project will provide valuable results to advance the understanding of the mechanisms underlying horizontal transfer of supernumerary chromosomes, which may be generally applicable to other filamentous fungi. In addition, the mechanistic revelation of transferring megabase-level chromosomes could provide information on how to deliver artificial chromosomes in synthetic biology